Science and Technology for Children

The National Science Resources Center (NSRC) will join with the National Academy of Sciences and the Smithsonian Institution to bring together teachers, educators and scientists with a great diversity and richness of experience to create and disseminate an innovative elementary science program for grades one through six called Science and Technology for Children (STC). Twelve hands-on, inquiry-centered units will be produced and disseminated by the project; these units plus the twelve units the STC project already has produced will constitute a complete elementary science program for grades one through six. In addition, 16 science readers will be developed to complement the 16 STC units for grades three through six. School districts will be able to use these materials either as a complete elementary science program or individually, as a supplement to an existing science program. These materials will be designed to meet the needs of elementary school children from diverse cultural and ethnic backgrounds.